Late Pliocene Hominid Bahavior and Paleoecology at Kanjera South, Africa

With National Science Foundation support, Dr. Tom Plummer and colleagues
will conduct two field seasons of excavation at Kanjera South, southwestern
Kenya. The team brings together specialists in archaeology, paleontology,
paleoecology and geology to conduct an interdisciplinary investigation of
the behavior and paleoecology of hominids forming early archeological
(Oldowan) sites. The appearance of Oldowan archeological sites at c. 2.5
million years ago (Ma) reflects a profound adaptive shift in human
evolution, the incorporation of large mammal tissue into the diet. The
proposed project will be the first to carry out a detailed study of site
formation processes at Oldowan sites older than 2.0 Ma, using a wide range
of traditional and innovative methodologies.
Excavations in 1996 and 1997 located rich concentrations of artifacts and
fossils in c. 2.2 Ma deposits in the Southern Exposures at Kanjera. Over
1,000 stone tools and thousands of fossils were collected in carefully
controlled taphonomic excavations. Documentation of relatively high
archeological densities in three beds at two of five sites along a 70m
transect suggests that hominid activity was spatially focused for a
considerable length of time. Preliminary lab analysis has identified
hominid marrow processing and carnivore damage to bone, as well as several
artifact refits. Stable isotopic chemistry of paleosol carbonates and high
equid frequencies indicate Oldowan hominid activities in a novel (open)
paleohabitat. A high proportion of small, immature mammals is suggestive of
small mammal hunting while medium to very large mammal remains (including a
potentially butchered hippopotamus) may have been scavenged. Hominid
transport of artifacts and raw material selectivity is suggested by lithic
analysis.
Expanding the samples of excavated material will allow reconstruction of
hominid activities within their paleoecological context at Kanjera and
facilitate meaningful comparisons with other large Oldowan site assemblages,
particularly those from Olduvai Gorge, Tanzania and the Lake Turkana basin,
Kenya and Ethiopia. Faunal analysis will provide information on hominid
procurement and processing of animals as well as the role of carnivore
activity in assemblage formation. Lithic analysis will document local
technological characteristics and hominid transport behavior as well as the
tasks chert artifacts were used for. Paleoenvironmental information will be
obtained using multiple methodologies. Limb element ecomorphic analyses and
isotopic analysis of carbonates will provide information on habitat
structure. Ecomorphic analysis of mandibles and analysis of carbon isotopes
from enamel will provide paleodietary information. Oxygen isotopes in tooth
enamel will constrain paleotemperatures and the degree of seasonality during
Kanjera Fm (S) deposition. Cementum analysis will be used to assess
antelope season of death.
Documentation of hominid utilization of open habitats at Kanjera may
influence views of early hominid capabilities, including their ability to
compete with large carnivores. This project should also contribute to the
on-going debate over faunal acquisition strategies, by providing a test of
whether small mammals were hunted. As the sample of medium and larger sized
mammals increases, it may be possible to assess the timing of access to
larger carcasses and thus whether hominids were passively or actively
scavenging them. Our attempts to measure the intensity of seasonality
through the sequence, as well as the influence of seasonality on hominid
foraging for animal tissue, have not been conducted on this scale before and
may provide valuable information on the motivation and frequency of Oldowan
carnivory.